SGER: NSNX and Social Choice Experiments

Over the past quarter-century and more, social choice experiments have
studied how people choose between what can be earned by each acting in pure
self-interest as against what would be jointly earned if all could commit
themselves to act in their common interest. This proposal grows out of a
pilot project that produced striking early results from fresh analysis of
archived data from several prominent sets of experiments, using an
unconventional extension of standard rational actor theory to allow for
social motivation ("nsnx"), and giving close attention to what has been
learned in recent decades about the cognitive cuing of
choices. Coincidentally (since the proposal was submitted) the Nobel prize
for Economics this year has been shared between Vernon Smith, who has
pioneered in the use of rational choice theory in experimental work and
Daniel Kahneman who (with Amos Tversky) pioneered in the application of
cognitive concerns to economics. The project builds on that work.

Results of several strong tests for "nsnx" effects have shown effects of
size and robustness beyond what has often been seen in the social
sciences. A downloadable "template" allows other researchers to run the
tests on data of their own choice. The work aims at gaining insight from
controlled experimental conditions that can be applied to socially urgent
problems (from voluntarism at home to terrorism and ethnic conflict aboard)
that turn heavily on the ability of groups to sustain or disrupt
cooperation under conditions where binding agreements and third-party
enforcement are difficult. This is arguably the most fundamental issue
of the social sciences.